Particle Physics

The award will cover participation of this group of individuals in studying the physics of the particle responsible for the weak interaction - the Z0. The machine called LEP at CERN in Europe which makes Z0's has been running now for almost three years, and this group were responsible for building an important component of the spectrometer called L3 which is used in the detection of the Z0 decay products. These decays reveal details of the theoretical "standard model" for the interactions of nature (including the weak interaction) with great precision. The same group also plans to participate in the design and construction of a future detector to be used at the SSC accelerator which should be operational in the next decade, and which should provide clues to questions for which the standard model has no answers. Such preparations are necessary at this time, given the large scale of the SSC project.